Development of a Low Temperature, High-field, Ultra-high Vacuum Scanning Tunneling Microscope

9501156 Zettl The invention of the scanning tunneling microscope (STM) has had tremendous impact on condensed matter physics and other disciplines. Although the STM was used originally only as a high-resolution, low-speed electronic imaging device, recent generation STM's have seen a wider variety of applications, including the picosecond resolution of tunneling and excitation processes and the control of nonlinear optical processes such as frequency mixing and harmonic generation. One long-time goal has been the ability to use the STM to construct and characterize new nanoscale structures, formed atom-by-atom or molecule-by-molecule. Although elusive, this capability promises the investigation of quantum size effects, atomic interactions, and novel electronic circuit elements. This award will find the construction of the next-generation STM, designed specifically to assemble and characterize nanoscale structures with unusual electronic properties. This machine will uniquely combine materials synthesis, manipulation, and high-resolution characterization capabilities, including operation at low temperature in ultrahigh vacuum (UHV) under high magnetic field, with atomic resolution and with unsurpassed high-speed data processing. Several outstanding problems in condensed matter physics necessitate such a machine and provide the initial motivation for its construction: (1) studies of metallic and superconducting clusters; (2) spectroscopy of one-and two-dimensional materials; and (3) fabrication of networks and quantum confined structures. ***